Domain Growth in PMN-type Relaxor Ferroelectric Oxides

9703550 Davies Preliminary experiments that have been conducted on a member of the PMN-relaxor family, PMT Pb(Mg1/3Ta2/3)03 indicate that the annealing temperatures utilized in all the previous attempts to promote domain growth lie in a range where the perovskite is kinetically inert. By taking special precautions that inhibit the volatilization of PbO, higher temperature heat treatments reveal that the size of the domains and degree of cation ordering can be increased by more than an order of magnitude. These observations unambiguously show that the currently accepted "space charge" models for the PMN relaxors are invalid. In this model the fine-scale inhomogeneities in the arrangements of the metal cations in the "B-sites" of the perovskite structure are interpreted in terms of the formation of negatively charged ordered nano-domains dispersed in a positively charged disordered matrix. The primary experimental support for this interpretation comes from the apparent absence of any growth of the domains or change in the degree of ordering with extended thermal treatment. This project will explore several new avenues of research that emanate from these results and focuses on the structure and properties of selected niobate and tantalate relaxor systems. The goals of these studies are: (1) to establish how the structural state of PMN-type relaxors respond to different high temperature treatments; (2) to develop new crystal chemical models for the cation ordering that are consistent with these observations; (3) to characterize how the new variable of degree of order and domain size affects the dielectric response of the PMN relaxers and; (4) to exploit these models to develop new relaxor ceramics. %%% Since their discovery over 35 years ago, relaxor ferroelectrics have attracted widespread interest for applications in multi-layer capacitors, transducers, electro-optic devices, and thin film memories. It is now well known that the dielectric properties of relaxor systems are intimately linked to the localized disorder in their crystal structures. However, a full understanding of the origins of the structural inhomogeneities and their relationship to the physics of the relaxor response does not yet exist. This is particularly true for the lead-based PMN (lead-magnesium-niobium oxide) complex perovskite relaxors, the most well known and widely studied family of relaxors, which are the focus of this exploratory study. The extensive studies that have been conducted on the PMN systems have led to the establishment and acceptance of one model as a basis for explaining their structures and properties. Preliminary work by the Principal Investigator has shown that this model may not be correct. The project will perform experiments to confirm the PI's model that will then be used to develop new relaxor materials. ***